Normal Mode Studies of the Mantle and Core

9706188 Ritzwoller This research is to implement developments done under previous work on earth normal modes including improved measurement techniques and expanded catalogues of more than 3,000 even and odd degree structure coefficient estimates of 90 observable multiplets below 3 mHz. This work will extend this catalogue of normal mode (generalized) structure coefficient estimates from 3 to 5 mHz focusing on data analysis of mantle-sensitive modes, rather than analysis of core-sensitive modes. The goal is to generate coefficient estimates, estimated errors, and misfit statistics for at east 100 new multiplets. This expanded catalogue will be used to assess existing mantle models. ***